Operator Algebras, Operator Spaces, Frames and Applications

ABSTRACT
Paulsen/Blecher/Papadakis

The Principal Investigators propose several main lines of research on
topics related to the theory and applications of operator algebras,
operator spaces, and frames. Blecher will be studying the general
theory of operator algebras and modules over operator algebras,
Hilbert C*-modules, and questions relating to noncommutative Choquet
theory. Paulsen will continue to study injective operator spaces and
modules, the weak expectation property, function theoretic operator
theory, interpolation theory from an operator algebra point of view.
With Papadakis he will also be studying and frames and reconstructions
with a view to applying reproducing kernel Hilbert space methods and
symmetric orthogonalization results.

The study of operator algebras originally grew out of quantum mechanics.
It is often important to see how formulas involving numerical variables
behave when these variables are allowed to be operator variables. It is
out of such a process that the theory of operator spaces and completely
bounded maps emerged. Blecher and Paulsen's research focuses mainly on
questions of how various theories behave under this `quantization'.
On the other hand, interpolation theory started as a purely mathematical
exercise, and only in the past 20 years has it been found to have
important applications in engineering. For example, in electrical circuit
design, one starts with a desired frequency response, for a few given
frequencies, and wishes to design the simplest circuit with that given
response. Mathematically, this problem becomes one of finding the
simplest function of a given type that achieves certain given values at
given points. This last problem is what we call an interpolation problem.
Already the demands of electrical engineering take us beyond the known
interpolation theories. Surprisingly, interpolation theory and the study
of operator algebras is interwoven, and this interplay has lead to some
new interpolation results. We have found that a better understanding of
the "quantized", i.e., matrix-valued, interpolation is what is needed
to answer many ordinary interpolation questions.
Frame theory can be applied to the study of how we extract information
out of streams of data, and how we reconstruct the original data from
the derived information. A typical example of a situation where this
arises is the CAT scan, where from a large quantity of data, one is
trying to reconstruct a picture of the inside of a body. Our work is
not focused on particular examples, but on how one analyzes how "good"
is a particular frame.